Tunable Pulsed Laser System for Nonlinear Raman Spectroscopyand Optical Studies of Solids

This award from the Chemistry Research Instrumentation Program and the National Facilities and Instrumentation Program will help the Department of Chemistry at Oregon State University acquire a Nd:YAG tunable dye laser system. The laser will be used in research projects aimed at 1) Optical Studies of New Solids and 2) Nonlinear Raman Spectroscopy. Raman Spectroscopy is concerned with vibrational and rotational transitions in molecules. The information obtained sometimes complements that obtained from an infrared study and provides valuable structural information. Fourier-transform Raman spectroscopy with near-infrared excitation provides a powerful solution to problems of high background fluorescene or sample photodegradation or photolability and enhanced signal-to-noise quality. Raman spectroscopy is an invaluable tool in studies of condensed-phase chemical and biomolecular systems.